Conference: TCUP Annual Research Symposium

A goal of the Tribal Colleges and Universities Program (TCUP) is to increase the science, technology, engineering and mathematics (STEM) instructional and research capacities of specific institutions of higher education. Expanding the research capacity at these institutions expands the opportunities for students to pursue challenging, rewarding careers in STEM fields, provides for research studies in areas that may be locally relevant, and encourages a faculty community to look beyond the traditional classroom for intellectual and professional growth. This project aligns directly with that goal, and moreover will increase the body of knowledge about the faculty-led research being conducted at TCUP institutions.

Tribal Nations Research Group (TNRG) will conducts a four-year series of symposia that invite faculty and students at TCUP institutions to present the results of their original research or design projects. TNRG will also provide consultation to student researchers on writing, presentation, and communication skills needed for scientific careers. The TCUP Research Symposia, a showcase of work conducted at or by TCUP institutions, are held in locations proximate to NSF to enable NSF staff (both scientific and technical/administrative) to examine closely the results of NSF research support, and to engage directly with the faculty and, most importantly, the students who are the STEM workforce of the future. Each symposium offers a full day of oral presentations and at least a half-day of poster presentations. This design is intentionally constructed to allow networking time among the students and faculty, who are often from isolated areas, to interact and share professionally among themselves on topics that are similar in nature, but vary in subjects and geography.